Magnetic Reconnection Mediated by Radiative Cooling

This award supports a study of magnetic reconnection, a fundamental phenomenon which underlies some of the most meaningful energy transfer and conversion processes in magnetized plasmas. It is the mechanism powering flaring events in astrophysical objects such as the sun and other stars as well as accretion disks, it mediates interactions between stellar winds and magnetized planets, and it plays a critical role in the dynamics of magnetically confined plasmas in fusion reactors. In all cases, magnetic reconnection irreversibly changes the topology of magnetic fields and accelerates constituent plasma particles. Despite substantial progress in understanding the physics of magnetic reconnection, relatively little is known about reconnection in environments where radiation plays a dynamically significant role. This regime is relevant for a wide variety of high energy density astrophysical environments such as black hole accretion disks and their coronae, gamma ray bursts, pulsar wind nebulae and jets from active galactic nuclei. The project will support a graduate student and a collaboration between the Massachusetts Institute of Technology and the University of Oxford in the United Kingdom.

This project aims to build a theoretical foundation for understanding magnetic reconnection in the radiatively cooled regime. The research effort will build on recent analytical work on current sheet formation and will use numerical simulations to test theoretical predictions of the current sheet dynamics in the presence of strong radiative cooling. The ultimate goal of the study is to bring the understanding of magnetic reconnection mediated by radiative cooling to the level of sophistication that currently exists for its non-radiative counterpart. At present, a fundamental understanding of the specific impact of radiative cooling on the different stages of reconnection is lacking. The gaps to be addresses by this research effort range from the current sheet formation and the linear tearing of the reconnecting current sheet, to the ultimate steady state that may determine the associated rate of magnetic reconnection.